Parameter Estimation of Neuronal Systems

9315886 Durand This award will fund a project to investigate parameter estimation techniques for use with neurophysiological systems. The investigators will compare and test current and new parameter estimation techniques; that is, Linear Associative Memories. These techniques will be applied to the estimation of electrotonic and membrane ionic channel parameters. This proposal was submitted to the Biosystems Analysis and Control Initiative which encouraged the submission of proposals that through the study of neurophysiological systems could advance engineering science and advance the knowledge of biological systems through the use of engineering analysis techniques. The research being funded by this award has the potential to assist in the modeling of neurophysiological data and advance the field of engineering in the area of parameter estimation. ***